POSE: Phase I: Open-source Hardware and Software Platform for Outdoor Sensor Networks

The agriculture industry is grappling with pressing needs for increased productivity to meet projected global demand. Data-driven techniques, sometimes referred to as precision agriculture or smart agriculture, have demonstrated benefits. For example, sensor driven irrigation can reduce water consumption by 20-50% while maintaining (or even increasing) crop yields. Despite these benefits, the vast majority of U.S. farms do not yet readily use sensor technology. Part of the reason for the lack of adoption is the difficulty of deploying and maintaining these sensor networks. Farmland and wild lands do not have ubiquitous power and communication infrastructure, which means that land managers are often required to deploy unique solutions. This project addresses the need for common, reliable, long-term outdoor sensor networks that support agriculture, forestry, and land management. By advancing an open platform, the project aims to give farmers sensor tools that are long-lasting. This effort supports national interests by enabling better land management, improving resource use, and helping producers adapt to changing conditions. A community driven system will also encourage broader use of data guided practices.

This open-source platform provides comprehensive capabilities for sensor integration, data collection, wireless communication, and visualization, enabling users to monitor and optimize activities like farming, ranching, and forestry. The project has two parts: a sensor node hardware/firmware and a data ingestion/visualization pipeline. The sensor node hardware collects data from arbitrary sensors (e.g. temperature and power monitoring) and transmits measurements wirelessly. Multi-modal wireless communication is employed so that users can configure the system to work with the modality that best suits their particular needs. The backend receives data from the hardware nodes and presents it in an easy-to-use web interface that allows users to dynamically generate plots or download data for offline processing. Existing use cases include supporting the design and deployment of novel agricultural sensors, validation of novel Unmanned Autonomous Vehicle-driven sensor networks, community based wireless irrigation systems and more. This Pathways to Enable Open-Source Ecosystems (POSE) project will focus on establishing testing standards, improving documentation, and supporting new contributors. The team will develop governance structures, training materials, and processes for accepting external code. The OSE will expand community engagement through workshops and events to broaden adoption. These efforts will prepare the platform for long term sustainability and wider integration into sensor applications.